A Biological Knowledge Laboratory

The great volume and depth of scientific knowledge contained in the published literature is rapidly becoming available in machine-readable (computerized) form. This research addresses the issue of how to give a scientist, a biologist, rapid access to this knowledge through a computer system that behaves very much like a well-informed colleague, a "Scientist's Assistant". The Assistant answers questions by returning appropriate text and diagrams, not a list of documents. Though the approach is comprehensive, two topics are emphasized. Analog Reasoning which assumes that human knowledge and reasoning is essentially analog and encyclopedic rather than discrete and formal, and Diagram Understanding which treats diagrammatic material as a conveyer of information which complements language in crucial ways. The research uses and develops tools in artificial intelligence, computer vision, natural language understanding, and related fields.